SHF: Small: Collaborative Research and RUI: Static and Dynamic Analysis for Cooperative Concurrency

The widespread adoption of multicore processors requires multithreaded
software to exploit these hardware resources. Unfortunately, the
construction and validation of reliable concurrent software currently
requires extraordinary effort, due to unanticipated interactions
between concurrent threads. Thus, developing better programming
techniques and tools for concurrent programming is essential. This
research develops a cooperative programming methodology for
multithreaded software, based on the philosophy that all thread
interference must be explicitly documented via source-level "yield"
annotations by the programmer.

The project will investigate both static and dynamic checking
techniques to verify the correctness of yield annotations. Once
verified, these annotations guarantee that code executed between
successive yields is serializable and thus amenable to sequential
reasoning. Moreover, yield-free code is deterministic. Despite
provided these strong safety guarantees, this methodology does not
impact program performance. The cooperative methodology provides a
robust foundation for multithreaded software and can potentially
transform the principles and practices of multithreaded software
engineering. This work on cooperability will also provide research
opportunities for graduate and undergraduate students, and it will
support endeavors to provide access to science education for all
students.